Molecular Dynamics Simulation of Surface Problems (Materials Research)

This award supports a cooperative research program involving Professor Ivan K. Schuller of the University of California, San Diego, and Professor Ricardo Ramirez of the Pontifical Catholic University of Chile, in Santiago. The project involves use of modern computational techniques to study a variety of problems in the fields of thin film and surface physics, including the epitaxial growth of different crystal types (face centered cubic (fcc) and body centered cubic (bcc)), and the energetics and kinetics of hydrogen absorption on the surfaces of transition metals. The equation of motion of the surface of an epitaxially growing system will be solved using the computational technique of Molecular Dynamics (MD). The epitaxial system will consist of a literal model of the top few atomic layers of a bcc substrate and the related potential distributions, combined with a model of the growing fcc layers. Particular attention will be paid to the effect of the starting orientation on the final results. The hydrogen-surface behavior problem will be approached by setting up a model of a stable fcc crystal which will be given a surface potential distribution approximating that of nickel. A single hydrogen atom will then be allowed to interact with this crystal via a suitably chosen potential and the MD of the combined system will be analyzed to study diffusion properties, the energy distributions at subsurface sites, and kinetics. This study represents an application of computer modeling, in particular the Molecular Dynamics method, to a class of important problems in condensed matter physics. The simulation of epitaxial crystal growth could have important implications, for example, in the production of new semiconductor materials and devices, yet theoretical approaches to this problem have been sparse. Each of the investigators brings complementary strength to this research, with experimental and simulation expertise from the U.S. and theoretical expertise from Chile. Numerical calculations will be performed in both the U.S. and Chile, with elements of computer codes developed jointly. The problems to be studied are of considerable scientific and technological importance, and the simulation results should be useful as tests for theories and guidelines for future experimentation.